Molecular Systematics of Pinus

Pines, conifers of the genus Pinus, are among the most geographically widespread and most economically important trees of the northern hemisphere. Whereas many aspects of the biology of pines are well known, especially characteristics relevant to forestry, evolutionary relationships among the ca. 100 species of pines and relationships with other living and fossil conifers are still controversial. Improved taxonomic knowledge of phylogenetic affinities is likely to aid improvements in breeding techniques and management of forest resources, as well as clarify genealogical lineages among pines and related conifers. Using modern methods of molecular biology, including the new methods of polymerase-chain-reaction to amplify targeted DNA molecules for nucleotide sequencing, Dr. Steven Strauss of Oregon State University will study samples of all the taxonomic subsections of the genus Pinus and determine an evolutionary framework through comparisons of DNA differences. Preliminary results from Dr. Strauss's laboratory demonstrate the feasibility of the techniques; the data promise robust findings on the genomic changes that have occurred during evolutionary divergence of pine species. When correlated with the well-known record of fossil pines, the molecular findings may enable calibration of a "molecular clock" of DNA changes in this group of gymnosperms.